Recognition Of Printed Text Directly From Gray Scale Input

This award, in the Small Grants for Exploratory Research mode, provides limited funding for a one-year probe to explore whether segmentation and extraction of features for optical character recognition (OCR) can be done directly from gray-scale (non- binarized) images. This method would preserve information now lost and avoid the noise and errors introduced during image binarization for the typical connected-components approach to OCR. The resulting approach should be more robust, and should support recognition of text of poor print quality in a variety of fonts.